Mechanisms of Neuronal Excitation by Magnetically Induced Currents

This project will study: i) the mechanisms of activation of neural tissue by magnetic stimulation; ii) calculate induced fields in various volume conductors; iii) simulate on the computer the effects of these fields using models of axons and neurons; and iv) design a coil capable of focussing the induced fields. This project also intends to test directly the efficacy of this coil in both the peripheral nervous system and the central nervous system (CNS). This combination of a theoretical with an experimental approach should generate useful and important information about the mechanisms of magnetic stimulation and the efficacy of focussing magnetic fields for the excitation of the nervous system. This non-invasive method of stimulation should provide clinicians with a powerful tool to study and map normal brain function as well as diagnose certain types of neural diseases provided that the mechanisms of the interactions between magnetic fields and neural tissue can be understood.